The Effects of Uncertain Policy on Economic Dynamics

Many countries are currently instituting sweeping changes in economic policy in areas such as liberalization of trade and capital flows, monetary and fiscal policy, greater reliance on markets, and privatization. Countries which have a history of highly variable economic policies have experienced booms in economic activity, consumption, and imports following sharp policy changes. The purpose of this project is to analyze the effects of uncertainty about the timing and nature of shifts in economic policy on the dynamics of consumption, investment, asset accumulation, and capital flows: and to determine how variability of policy may influence these dynamics. A general analytical framework will be developed to study the effects of uncertainty created by economic policy changes.